Conceptual Understanding in Physics: Coordination of Knowledge About Simple Harmonic Motion

Delineating the nature of conceptual understanding and its development is a fundamental problem for science education research. Toward this end, the project will conduct a one-year empirical investigation of the knowledge that individuals have about a central topic in physics: simple harmonic motion (shm). The research will include four groups of subjects, ranging from high school students to physics professors, so that relevant cross-sectional comparisons at different levels of knowledge about shm can be made. The research design will use structured interviews with a systematically formulated set of questions that explore the major relations of shm and its application to particular physical systems. The Principal Investigator will attempt to characterize the psychological organization of knowledge that underlies a person's conceptual understanding about shm. This underlying knowledge includes the ability to reason about a variety of physical systems involving (or appearing to involve) shm, using a range of techniques and representations. The relevant components of this knowledge have already been identified from a rational analysis of the kinds of skills needed for competent performance. The cross-sectional description of individuals' different levels of knowledge concerning shm will form the basis of inferences about the processes involved in developing the ability to reason about shm.